Computer Science, Mathematics, and Engineering Scholarship Program

This program provides scholarships for students who are majoring in computer science or mathematics or who are completing a double major combining engineering with biology, chemistry, computer science, mathematics, or physics. The program includes a special orientation, scholar-based and peer-based mentoring (emphasizing both academic and socialization skills), formal collaborations with the office of career development, a dedicated web site, the establishment of a CSEMS Club, in addition to peer tutoring and internships with high-technology partner firms.